CAREER: Applications of Reformer Gas to Improve Cold Start Performance of A Homogeneous Charge Spark Ignition Engine

This effort explores the feasibility of extending the dilution limit of an engine during cold-start conditions by using reformer gas and characterizes experimentally the chemical interactions of reformer gas with large-carbon-number hydrocarbon fuels representative of gasoline over a range of pressures, temperatures, and equivalence ratios. The investigation includes determination of flame speed with digital particle-imaging velocitmetry (DPIV) using a counterflow burner, and characterization of oxidation scattering, and planar laser-induced fluorescence (PLIF) using a piston reactor. Engine experiments are conducted to determine the effect from the use of reformer gas on cold-start hydrocarbon emissions.

Under the education plan, research findings are integrated into course development. The program also includes outreach efforts at the precollege level including science project advising, classroom visits, hands on laboratory sessions, and laboratory demonstrations.